U.S.-Argentina Cooperative Science Program: Characterizationof Genes Involved in Sex Determination and Sex Reversal in Akodon (Cricetidae) Rodents

This award from the U.S.- Argentina Cooperative Science Program supports research in biology to be conducted by Dr. Yun-Fai C. Lau of the University of California, San Francisco and Dr. Nestor O. Bianchi of IMBICE, La Plata, Argentina. The project focuses on the study of sex determination in Akodon rodents. The project takes advantage of the fact that several species of rodents from the Genus Akodon in South America possess some peculiar sex determination mechanisms in which there is a disproportion of females harboring both X and Y chromosomes in their karyotypes. These rodents will be studied to investigate the mammalian sex determination process and to test the involvements of several recently isolated candidate genes for the testis determining Y (Tdy) locus on the Y chromosome. The award will support a collaborative effort by two recognized experts in the field of mammalian sex determination.